The National Urban League Preschool Science Collaborative

The National Urban League (NUL) will form a Preschool Science Collaborative with Educational Equity Concepts, the Boston Children's Museum, American Association for the Advancement of Science and Association of Science Technology Centers to develop, field test, produce and disseminate physical science activities for preschool children and to provide training for parents and teachers of this age group. Materials that will be produced by the Collaborative include a center- based science activities manual, activities booklet for use by parents and play spaces or corners for science explorations. A promotional videotape will be developed to highlight various parts of the training for parents and teachers and to promote the use of materials in all preschool centers. The materials will be field tested in twelve Urban League affliates representing a broad cross section of participants. The preschool program is a component of NUL's Education Initiative which is interested in improving science education for preschool children from low income or single family households. It will receive the benefits of all the support resources that are available through NUL. The directors, staff and subcontractors are highly qualified to conduct this project. With the increasing number of children involved in early education, the project should be extremely valuable in increasing our understanding of what is happening to young children in preschools, particularly, minority children. This proposal clearly addresses the need for science literacy among teachers, staff and parents of preschool children and will refine, document and test a curriculum which consists of science eduction activities. The program will help to build skills of both teachers and parents, working cooperatively, to stimulate critical thinking in young children. The project's goals are consistent with those of the Instructional materials Development Program.